FY 98 FEDLINK Serials Subscription Services

FEDLINK will provide administrative services to NSF to facilitate procurement of library support and information services and to provide guidance and other services as required.